Chemical Control of Recombination at Semiconductor Interfaces

This project is in the general area of analytical and surface chemistry and in the subfield of heterogeneous photoprocesses. During the tenure of this three-year continuing grant, Professor Lewis and his students will investigate structural and electronic properties of semiconductor/liquid interfaces. Using well-defined semiconductor/liquid contacts, this research seeks insight into those factors which control (a) electric fields in the semiconductor domain of the interface, (b) the rate at which charges move from the semiconductor phase into the contacting phase, and (c) the semiconductor/contacting phase surface chemistry. %%% Semiconductor/liquid contacts are important in many technologies including solar energy conversion, photochemical remediation of toxic wastes, chemical sensors, and molecular electronic devices. The successful attainment of the goals of this research should result in the more efficient and widespread use of semiconductor systems in the aforementioned and related technologies.